AIHEC Planning Grant to Develop Full-Scale Proposal for Computer Science Infrastructure; Colorado; August 1993

9315302 Loufas This award provides for planning the expansion of the role of Native Americans in computer science and engineering. Under the auspices of the American Indian Higher Education Consortium (AIHEC) a group of 28 individuals will be convened for a three day workshop. The group will consist of faculty in computer science and engineering from each of the Tribal Colleges in the United States together with a limited number of facilitators. The outcome of the project is to be detailed plan outlining ways in which the roles of Native Americans in computer science and engineering will be expanded. ***